Improvement of Undergraduate Biology Curriculum Through Bright-Field and Fluorescent Microscopy

Funds are being used to purchase a high quality microscope with bright-field, fluorescent, and photographic capabilities. This instrument is to be the focus of lab exercises in the introductory genetics course, a cytogenetics course, and an immunology course. It is to be used to a lesser degree in bacteriology, embryology, and histology courses, and will also be used in independent research projects. In the genetics courses, attention is focused on chromosomes. Several laboratory exercises and student research projects have been designed to involve students in cytogenetics and immunological techniques which require photo- and fluorescent microscopy. This provides students, many of whom are members of minority groups, with technical knowledge and expertise in the use of an instrument fundamental to biological investigations. The university will contribute an amount equal to the award.